RAPID: Teleoperated Robot Systems in Support of Health Care Workers

The expanded Ebola Testing Unit will allow health care workers to reduce their exposure to highly contagious pathogens, such as Ebola Virus Disease, by creating a physical separation between them and the pathogen. The remote-controlled robot system will allow the health care worker to perform some tasks without having the be physically close to sources of potential infection and will, as a result, dramatically reduce their risks of contracting the disease they are treating. The proposed system will both reduce the risk of infection to health care workers, and will increase the quality of care that patients receive: by reducing the time requirements of donning and doffing protective clothing, health care professionals can concentrate on patient care. Ultimately, the work proposed here will save lives, both in the current Ebola outbreak, and also in future outbreaks of highly-infectious diseases.

The approach will focus on three elements: tele-operated mobile manipulation, protective equipment for easy decontamination of the robot, and a person tracking system for Ebola treatment facilities. A simulated Ebola testing unit will be demonstrated within six months. It will integrate new hardware, address the issues of operation over wireless and identify the robot tasks in consultation with health care professionals. Protection and decontamination systems will be evaluated and the effectiveness of the complete system evaluation. The system will then be integrated in a broader facility in collaboration with WPI.